Structural Studies of Myeloperoxidase

Myeloperoxidase is one member of a family of homologous mammalian peroxidases (a class of heme proteins) for which no previous X-ray crystallographic structural studies have been reported. This enzyme occurs in the mammalian neutrophil, where it catalyses the hydrogen peroxide mediated oxidation of chloride ion to hypochlorite, an effective anti-bacterial chlorinating agent. An electron density map of canine myeloperoxidase has been determined at 3 A resolution and preliminary interpretation of this map has included identification of the histidine proximal ligand to the heme iron. This project is concerned with further interpretation and refinement of the electron density map to determine the complete courses of the 4 polypeptide chains comprising an entire myeloperoxidase molecule. High resolution structural studies of human myeloperoxidase, using molecular replacement methods will be carried out to determine conformational details of the active site. The goal is to determine the catalytic mechanism for this enzyme and other related members of the same gene family.